Mineralogy, Paragenetic Sequence, Geochemistry, & Charac- terization of Phosphorus in the Fluorite-Barite Mineral Deposits at Okorusu, Namibia: U.S.-Namibia Coop. Research

9312728 Hagni This three-year cooperative research project supports field research and mineralogical and geochemical study of the Okorusu fluorite-barite mineral deposit in north-central Namibia. The PI and a graduate student from the Department of Geology and Geophysics at the University of Missouri-Rolla will collaborate with Dr. Gabriele I.C. Schneider, chief geologist at the Geological Survey of Namibia, in studying the deposits and collecting specimens for subsequent laboratory study at UMR and in Namibia. The Namibian partner will travel to Rolla during the third year to participate in the development of conclusions from the field and laboratory research. This research will document several fundamental aspects of the mineral deposit at Okorusu which have not been studied to date, including: mineralogy, paragenetic sequence, fluid inclusion geothermometry and salinities, rare earth element geochemistry, trace element geochemistry, and the character of apatite-fluorite intergrowths. This study could improve understanding of the origin of fluorite deposits, explaining why a few carbonatites contain economic concentrations of fluorite, whereas most do not. The project also promises practical applications of interest to the Okorusu mining operation - improving separation of apatite and fluorite in order to produce superior fluorite concentrate. Since somewhat similar deposits occur in parts of the U.S., the economic as well as the scientific implications of the research could be mutually beneficial. In addition to the benefits outlined above, this project advances the Division of International Programs' objective of strengthening human resources: it offers a US graduate student an opportunity for field experience in a collaborative research project with a distinguished scientist in Africa, who also happens to be female. ***